ROW/RPG: Determination of the Fe-Mg Interdiffusion Coefficient in Olivine: A Comparison of Electron Micro- probe and SIMS Analytical Techniques

The principal investigator will carry out preliminary research as a forerunner to a more thorough experimental study of Fe-Mg diffusion in olivine. The research will be significant in understanding changes in diffusion mechanism as a function of temperature.